Development of Physiological Psychology and PsychophysiologyLaboratory Facilities

The purpose of this project is to develop facilities which give undergraduates experience with a range of laboratory procedures that are currently unavailable. This project is part of a more comprehensive adjustment in the psychology department's curriculum which will reestablish an emphasis on laboratory experiences. The laboratory in physiological psychology is providing experience with both traditional methodologies and psychophysiological methodologies. A laboratory course in developmental psychobiology is being added to the curriculum to take advantage of the improved animal facilities. The equipment is being used to upgrade the laboratory in introduction to psychology and is available for senior students to use in their independent projects.